ITR: Robust Ad-Hoc Active Vision Networks and Applications

Abstract

Proposal ID: 0312558
Institution: Pennsylvania State University
Principal Investigator: Octavia Camps

This project focuses on problems of distributed active vision - a confluence of computer vision, ad-hoc networking and control. The objectives are to develop a paradigm for systematically designing provably robust distributed active vision systems and to characterized the performance of the resulting systems. Progress in this area offers significant benefits to a variety of application areas, such as intelligent activity monitoring systems and smart environments, aware of user activities. While prototype systems have been developed in several laboratories, these suffer from shortcomings that limit their application and testing outside of research environments. This project will build on some of that work to achieve robust systems built on sound system theoretic concepts, a common mathematical language and usable set of tools.